Research Experiences for Undergraduates (SITE) in Psychology

9322497 POMERANZ This award provides funds to continue a Research Experiences for Undergraduates Site in Psychology at SUNY at Stony Brook. The program will immerse 10 undergraduate students in an active research environment spanning the areas of behavioral and cognitive neuroscience, psychophysiology and the experimental study of decision, choice and self-control. The goal is to introduce students who are not currently involved in a laboratory research program to state-of-the art psychological research in some of the most interesting areas of experimental psychology. Recruitment of students will focus on schools with large minority populations and institutions which do not have the resources to provide their students with research experiences. Students will conduct independent research projects in one of eleven active research laboratories. To supplement the laboratory experience, a variety of group activities such as visits to other labs, laboratory meetings, seminars, and symposia are planned. This award contributes to the Foundation's continuing efforts to attract talented students into careers in science through active undergraduate research experiences. ***